Present--Day Kinematics And Dynamics Of The Eastern Mediterranean/Caucasus: Interaction Of The Arabian, African, And Eurasian Plates

Reilinger
9909730

This project is a continuation of MIT's collaboration with international partners to define plate motions and intra-plate deformations
in the eastern Mediterranean region using the Global Positioning System
(GPS). This work will follow three principal directions, including, 1)
continuing to use GPS to monitor deformation in the zone of interaction of
the Arabian, African, and Eurasian plates with a focus on specific tectonic
features such as triple junctions, active faults, and the eastern
Turkey/Caucasus collision zone, 2) incorporating other geological and
geophysical information to determine the relationship between present-day
deformation and deformation on geologic time scales, and to characterize
the principal forces driving deformation and the physical nature of the
lithosphere responding to these forces, and 3) developing detailed
numerical models to test alternative hypotheses. It is anticipated that this
research will add substantially to our understanding of the basic
principles that govern continental deformation in zones of active plate
interactions, and will provide an improved physical basis for estimating
and mitigating future earthquake hazards.